Signal Transduction in Cyanobacterial Light-Regulated Gene Expression

Light exerts enormous effects on phototrophic organisms in addition to providing the energy for their activities; the object of this project is to elucidate the signal transduction pathway between the initial perception of light by the cyanobacterium and the resultant changes in gene expression that have effects on the components of the light-harvesting complexes as well as morphological traits. Freymella diplosiphon will be examined in terms of global responses to changes in light quality and specific molecular requirments of the light-regulated responses, using physiological, biochemical, as well as molecular genetic approaches.